Group actions on homogeneous spaces, Euclidean buildings, and moduli spaces

This project is aimed at relating properties of group actions on
homogeneous spaces, Euclidean buildings, and moduli spaces. Specific
topics for investigation include: (1) Quasi-isometries of discrete
subgroups of semisimple Lie groups. (2) Finiteness properties of
function-field-arithmetic groups (with Kai-Uwe Bux). (3) Dehn functions of
arithmetic groups (with Gregory Margulis). (4) Unipotent flows on spaces
of abelian differentials (with Kariane Calta).

Homogeneous spaces are geometric objects that can be used to analyze
arrays of numbers that satisfy certain equations. Euclidean buildings are
also geometric objects, and they can be used to study arrays of
generalized kinds of ``numbers''. Moduli spaces are geometric objects that
can be used to parameterize spaces related to equations of complex
numbers. Much effort has been put into comparing and contrasting these
three objects, as each plays a significant role in the field of
mathematics. The goal of this project is to continue to examine links
between these three fundamental objects with the hope that a deeper
understanding of the relationships between the three will bear insights
for each as individuals.